Locally Optimal Preconditioned Eigenvalue Solvers

The area of preconditioned iterative solvers for eigenvalue
computations is rapidly developing. Software implementations of
several preconditioned eigensolvers, in particular, the locally
optimal block preconditioned conjugate gradient (LOBPCG) method
developed by the principal investigator (PI) earlier, are being
written. The recent progress opens new opportunities to develop
efficient preconditioned iterative solvers for interior eigenvalues
and singular value computations. The use of preconditioned
eigensolvers in applications raises new area-specific important
issues, both practical and theoretical, which need to be resolved. The
proposed research addresses these issues based on the success of the
previous work of the PI. The PI expects to advance the theory of some
known methods, to discover new locally optimal algorithms, and to be
able to provide specific recommendations concerning the choice of
methods. The following specific and interrelated research projects are
proposed: reducing the LOBPCG costs for large block sizes; developing
efficient preconditioned solvers for interior eigenvalues and singular
value computations; finite element method error analysis for
eigenproblems resulting from partial differential equations with
highly discontinuous coefficients. The projects form a balanced mix of
theoretical research and code development. Numerical simulations are
to be performed on modern parallel computing systems, such as the IBM
BlueGene/L supercomputer.

The ideas behind the proposed research are original, and build on
prior work. The project addresses mathematically difficult and
practically important problems. The broader impact resulting from the
proposed activity is twofold: Ph.D. education and advances in
software. Funds are requested in the proposal to support Ph.D.
students. Improvement of the software currently used and development
of new codes for scientists and engineers creates potential advances,
e.g., in analyzing extremely large data sets, which is important for
national security.